Population Biology and Evolution of an Androgen Regulated Gene

Every gene has two essential attributes. It determines the structure of a protein and it is regulated. The structure of the protein it produces determines its function - whether it is a structural part of the organism or whether it can serve as a catalyst of a metabolic reaction. If it is a catalyst, the structure determines exactly what metabolic reaction it catalyzes. The regulation of the gene determines how much of the protein is produced in each cell type and how the production of the protein changes in response to hormonal factors. It is differences in the regulatory properties of genes that allow complex organisms like ourselves to be composed of many cell types, each with a different function. Without these differences in regulation it would not be possible to produce diverse tissues, such as muscle and pancreas that have very different physiological functions. Current evolutionary theory suggests that changes in gene regulation have been extremely important in evolution, particularly among groups, such as primates, that have evolved especially rapidly. Despite this, because of technical limitations, much less is understood about the evolution of gene regulation than has been learned about the evolution of protein structure. The proposal is an effort to exploit recent advances in our understanding of the molecular mechanisms of gene regulation to help remedy this deficiency. The experimental system to be studied is a gene, called B-glucuronidase, that is thought to be involved in the metabolic production of pheromones, chemical signals between animals that alter their mating and productive behavior. This gene is regulated by the male sex hormone testosterone and provides a favorable experimental system because the molecular details of the regulation are well understood. The specific experiments are designed to determine more precisely the nature of the regulatory changes that are occurring in the evolution of this gene, and to clarify the nature of the underlying genetic changes that bring about this evolution of gene expression. The work will be carried on among mouse species where the regulatory properties of the gene are known to be evolving rapidly.